Reactivity of Metal-Carbon Triple Bonds

9312093 Mayr This award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports research on metal-carbon triple bonds by Dr. Andreas Mayr of the Chemistry Department, State University of New York at Stonybrook. Emphasis will be placed on two projects: 1) coupling reactions of alkylidyne ligands with other terminal ligands, and 2) reactions of metal alkylidyne complexes with unsaturated organic substrates. The carbon-carbon bond-forming steps of alkylidyne-carbonyl and alkylidyne-alkylidyne coupling reactions will be studied in detail. The feasibility of coupling alkylidynes with thiocarbonyl, nitrosyl, and imido ligands will be explored. Alkylidyne complexes containing sigma-bonded eta-1-hydrocarbon ligands, such as alkyl, aryl, and vinyl, will be synthesized and methods to induce the migration of the hydrocarbon ligand to the alkylidyne will be tested. In the second project, the basic conditions for carbon-carbon bond formation during reactions of alkylidyne metal complexes with alkenes and alkynes will be studied. %%% The general goal of this research is to develop new ways to form carbon-carbon and carbon-heteroatom chemical bonds, and to understand the role transition metals play in mediating their formation. The results will provide a basis for developing new organometallic reagents for organic synthesis and provide models for proposed mechanistic steps of catalytic processes, such as reductive polymerization of carbon monoxide, hydrocarbon skeletal rearrangement, and hydrocarbon hydrogenolysis. Novel organometallic compounds will be synthesized in the course of the research. ***